CRCNS US-France Research Proposal: Neural and Computational Substrates of Patch Foraging

Adaptive decision making is an important aspect of behavior that spans species and occurs in a wide range of contexts. Patch foraging—a serial process that involves searching a particular area for resources, harvesting resources, and deciding when to move to a new area—is one such behavior that is ubiquitous in animals and provides a useful context to study decision-making behavior in resource-constrained settings. This project investigates and compares patch foraging behavior in humans and mice in order to better understand the cognitive processes that shape this behavior. The research aims to reveal neural and computational principles that govern foraging behavior, providing a link between underlying neural circuitry and foraging algorithms. The work can inform brain-inspired artificial intelligence models that describe decision-making in naturalistic environments, and it can inform understanding of neurological disorders affecting brain networks involved in these processes. The project will support student training in these areas, and the investigators will share the data generated from the project with the research community broadly.

The project includes three specific objectives that aim to shed light on mechanisms underlying patch foraging behaviors. First, the research team plans to develop a computational framework that incorporates reinforcement learning with the foraging drift diffusion model. Second, brain networks underlying foraging behavior are investigated in human subjects using functional magnetic resonance imaging, providing insights into the network dynamics associated with the behavior that can be mapped onto the computational framework. Third, network dynamics of foraging behavior in mice are investigated using two-photon microendoscopy to record activity from dorsomedial striatal neurons that are part of the underlying neural pathways associated with the behavior. Together, these objectives aim to provide a cross-species picture of the computational and neural processes involved with foraging behavior, informing understanding of decision-making processes more generally.